The Survey of Earned Doctorates

This action provides funds for the award of new NSF contract SRS-9111915 to be awarded by March 21, 1991. Funds provided by this action are for $210,000 in fiscal year 1991 funds from the National Science Foundation, SRS for calendar year 1991 operations.